CAREER: Spin-Resolved Imaging of Correlated Electron Systems Including Cuprates and Pnictides

NON-TECHNICAL ABSTRACT

This CAREER award funds a project to image electron spins in complex
materials. Although electrons in metals mind their own business, barely
interacting with each other, in so-called 'strongly correlated electron'
materials the interactions of electrons drive unique properties that are
fascinating and often useful. For example, so-called high-Tc
superconductors carry electricity without loss at economically feasible
temperatures; multi-ferroic materials allow electronic data storage using
a magnetic field and magnetic data storage using an electric field; heavy
fermion materials boast electrons behaving with thousands of times their
actual mass; simple sheets of carbon called graphene allow electrons to
zip along as if they had no mass at all. These materials have in common
that their electrons interact strongly, and that those interactions are
poorly understood. This project will employ a spin-polarized scanning
tunneling microscope to measure the energies and locations of electron
spins with atomic resolution, starting with superconductors. The project
will also use this technology to educate three deserving groups: Harvard
students will benefit from a new undergraduate course on scanning
tunneling microscopy; local elementary school children will be invited to
see a working science lab viewing real electrons; interested citizens will
be able to browse a colorful website explaining the fascinating variety of
materials under investigation.

TECHNICAL ABSTRACT

This CAREER award funds a project to image electron spins in high-Tc
superconductors, both cuprates and pnictides. The common feature to these
exotic materials is that their electrons interact strongly, and there is
no broadly successful theoretical language to describe these so-called
'correlated electron materials'. Great strides have been made through
various methods of imaging the interactions of electron charges, but
understanding has been limited by the lack of effective tools to image the
interactions of electron spins. This project will employ a low
temperature spin-polarized scanning tunneling microscope to measure the
spin-resolved density of electronic states with atomic resolution. In
particular, a comparison will be made between spin interactions in
cuprates and pnictides, the only two known families of high-Tc
superconductors, discovered in 1986 and 2008. The project will also use
this spin imaging technology to educate three deserving groups: Harvard
students will benefit from a new undergraduate course on scanning
tunneling microscopy; local elementary school children will be invited to
see a working science lab imaging real electrons; interested citizens will
be able to browse a colorful website explaining the fascinating variety of
strongly correlated materials under investigation.